Problems in Large Cardinals and their Applications

9972257
Laver
Steel and Laver proved from a very large cardinal, a theorem about
a tower of finite left-distributive ( a(bc) = (ab)(ac) ) algebras.
Laver is studying a family of other finite problems about l.d. algebras
and the braid groups, using large cardinal axioms. He proved a
partial solution to the strong Halpern-Lauchli problem on binary
trees, under the assumption of a measurable cardinal, and is working
on solving the full problem. In all the above problems it is not
known whether a large cardinal is needed. The project also involves
studying a very large cardinal axiom of Woodin that behaves like the
axiom of determinacy on higher cardinality versions of the real line.
This axiom is being studied for its own interest and for the
possibility of variants of it shedding some light on the continuum
hypothesis. The CH is known to be immune to standard large cardinal
axioms, but not necessarily to strong variants.
Almost all theorems in mathematics can be proved from a simple
set of basic principles, the Zermelo-Fraenkel (ZFC) axioms for sets.
But, as first discovered by Goedel im the 1930's, there are some
statements that can neither be proved nor disproved from ZFC.
However, at least for some of these ``undecidable'' statements there
is hope of their resolution. Namely, they might be proved when one
augments ZFC by ``large cardinal'' axioms, axioms beyond the strength
of ZFC, which assert the existence of very large infinite numbers.
The undecidable statements are in some cases about finite mathematics.
The project involves studying some large cardinal axioms and their
potential to solve some well studied open questions in classical math.
Since some of these problems are about the finite world, they cannot
be ruled out as sources of concrete applications; if this happens, an
area of high philosophical interest will also have a striking
practical use.
***